U.S.-China Cooperative Research: The Beijing-Arizona Color Survey of the Sky

This award supports initial collaboration on a major sky survey between scientists at Arizona State University and the University of Arizona, and at the Beijing Astronomical Observatory, the Chinese University of Science and Technology, and the Purple Mountain Observatory. This project draws on resources and capabilities in both China and the US: the Chinese will provide a dedicated telescope and data acquisition system and will perform the primary image analysis work; the US group will contribute subsequent follow-up spectroscopy of interesting objects found during the sky survey. The support requested in this proposal is for a "mini-survey" to develop procedures and gain experience for the full-scale survey. The past century has seen a steady transformation of astronomy from a largely descriptive science to a science concerned with understanding the physical structures of the universe and the processes which shape them. New technologies now make it possible to conduct surveys which yield quantitative information for large samples of objects. Using these new technologies, this survey will prepare for a major cooperative survey which will provide a large, accurate data set that can also be applied to studies of galactic structure and stellar populations. This project makes good use of complementary facilities and interests; cooperation with Chinese astronomers on projects such as this is essential for the success of the larger survey of the sky.